RUI: Probing the Physics of Active Galaxy Jets: High-resolution Radio Studies of a Complete Sample of Lobe-dominated Quasars and Related Radio Galaxies

AST 0098253
Hough

The principal objective of this project is to extend and expand a high-resolution radio study of active galactic nuclei (AGN) that will make major contributions to our understanding of the physics of relativistic jets in these objects and, in the process, shed light on unified models of active
galaxies. Active galaxies, including quasars and radio galaxies, most likely harbor supermassive black holes in their central regions that are ultimately responsible for the intense, episodic emission the nuclei of these galaxies exhibit. By electromagnetic processes which are still not well understood, material is accelerated in the vicinity of the black hole and channeled into
jets that travel outward near the speed of light. Physical models of jets generally predict that their observed properties will strongly depend on the orientation of the jet axis to our line of sight
from Earth. Thus to perform statistical tests of these models, extended radio sources covering a very wide range in orientation will be studied. Radio telescopes will be used to image the jets in these objects on scales from light-years up to millions of light-years; the images will be used to look for systematic trends in the jet structures as a function of orientation angle, to determine the statistical distribution of apparent faster-than-light, or "superluminal", jet speeds and to follow the trajectories of the relativistic outflows. Observations will also be used to determine physical conditions in the jets and to map their magnetic fields, Several undergraduates - from both Trinity University and the Alamo Community College District - will be direct participants in this research. This will enhance their preparation for graduate study and offer students from underrepresented groups the opportunity to do science as they consider career options in the physical sciences.
Funding for this project was provided by the NSF program for Extragalactic Astronomy & Cosmology (AST/EXC).
***